Topology, Geometry and Physics

Abstract

Award: DMS-0405143
Principal Investigator: Clifford H. Taubes

The research of C. H. Taubes will mostly concentrate in differential
topology, but there are three mathematical physics projects of
interest as well. The primary project involves the use of symplectic
geometry tools to investigate the differential topology of four
dimensional spaces. The long range goal is to shed light on the
classification for smooth, four dimensional spaces, this one of the
outstanding open problems in low dimensional topology. As there is
considerable circumstantial evidence for a symplectic geometry role in
the story, the immediate plan is to probe the symplectic geometry
connections to the subject. The first of the mathematical physics
projects aims to construct an equivariant Fredholm setting for a Dirac
operator on the loop space of a manifold. Such a setting would
provide a rigorous framework for various aspects of string-theoretic
physics. The second mathematical physics project will study the
minimal energy states for a Hartree-Fock approximation to the strong
coupling Hamiltonian for quantum chromodynamics. The third
mathematical physics project is undertaken jointly with a chemist; it
studies a version of free energy for a DNA molecule in a salt
solution. The aim here is to predict the behavior of such molecules
in various biological contexts.

The major project probes the possibilities for the large scale
structure of four dimensional universes. For example, our universe
has four dimensions, these the usual three dimensions of space plus
time as the fourth; and astronomers have confirmed Einsteins
prediction that our universe is curved at large scales. The research
seeks to provide a complete list of the possible large scale
structures for a four dimensional universe. As of now, there is no
credible conjectured list for the possibilities, but there are clues
to its format. There are three other research topics that are
motivated by questions in mathematical physics. The first of these
seeks to confirm various conjectures from unified field theories in
physics for gravity and the subatomic forces. The second topic
explores techniques for predicting properties of the strong force that
binds subnuclear quarks as mesons, neutrons and protons. The third
topic studies equations from physical chemistry that predict the
behavior of DNA molecules in various biological contexts. The goal is
to develop tools to simplify the calculations.